U.S.-Mexico Dissertation Enhancement: Forest Communities of the Calakmul Biosphere Reserve, Campeche, Mexico

9903989
Darwin

This US-Mexico dissertation enhancement project will support research by Mr. Jon Christopher Brown under the direction of Dr. Steven P. Darwin, of Tulane University, to work with Dr. William J. Folan, Universidad Autonoma de Campeche, on forest communities of the Calakmul Biosphere Reserve (CBR), in Campeche, Mexico.

The research will inventory all woody plant species growing in the archeological zone of the CBR, develop a descriptive analysis of the forest communities of the preserve, and compare the geographical distribution of tree species relative to historical patterns of settlement and land use within the CBR site. The proposed study will establish permanent sampling stations at varying distances from the center of the CBR archeological zone and develop benchmarks for the detection of future change in forest species composition within the reserve. The project will also increase our understanding of how distributions of economically important tree species are significantly influenced by ancient land uses.
***